Center Evaluator at Two IUCRCs (CPAC and CDADIC)

94416397 Scott This project provides funding for an evaluator to study the industry/university interactions occurring in two Industry/University Cooperative Research Centers over a three year period. One is the Center for Process Analytical Chemistry at the University of Washington and the other is a multi-university Center for Design and Analog/Digital Integrated Circuits at Washington State University, University of Washington, Oregon State University and State University of New York at Stoneybrook. The evaluator is highly qualified to perform this study. The Program Manager recommends Dr. Craig Scott be awarded $42,000 for three years for this project.